ITR: Architectures and Design Methodologies for Secure Low-Power Embedded Systems

Embedded systems, for example in information appliances and networked
sensors, face some of the most demanding security concerns - they are resource
constrained while frequently needing to handle sensitive information in
physically insecure environments. Security processing can easily overwhelm the
limited computation and memory resources of embedded processors, especially with
the escalation in the amount of data to be processed and the data rates of
high-speed networks. This "performance gap" is compounded by the "battery gap",
which is the disparity between energy requirements and slow improvements in
battery technology, for secure low-power embedded systems.

This project is an inter-disciplinary study of several core technologies
that will enable the design of secure, low-power embedded systems. It spans the
fields of security, cryptographic algorithms, embedded processor architecture,
computer arithmetic, low power design, and enabling design methodologies and
tools. It addresses the performance, energy and security requirements, and
their tradeoffs, in embedded processors and systems. The research goals include
a comprehensive analysis of the performance requirements and power consumption
for security in embedded systems. The project is developing efficient architectures
for security processing in low-power embedded systems, including configurable
security modules for system-on-chip designs, and architectural guidelines for
tiny cryptographic processors for embedded systems. The performance, power and
security tradeoffs based on customizations at the protocol, cryptographic
algorithm, and hardware and software implementation levels are studied. Design
methodology and tools include processor design tools to facilitate the design of
new security processing architectures based on open frameworks such as the PLX
(hosted at Princeton) and SimpleScalar toolkits. The project explores
domain-specific design methodologies that jointly co-design security protocols
and processing architectures to meet the required security, performance and
power priorities and constraints.

The research enables the design of embedded systems with higher levels of
security, while achieving an order of magnitude or more in performance and
battery life, compared to conventional approaches. Broad security impacts are expected for embedded system design, in addition to impact for future research and education. Results are disseminated to industry through the Princeton Architecture Lab for Multimedia and Security (PALMS) and the NJCST Center for Embedded System-on-a-Chip Design. The research results are being woven into graduate and undergraduate courses.